Algebra, Number Theory and Algebraic Geometry

The investigator (Gross) and his colleagues (Kazhdan and Sommers) are
working on an assortment of problems in number theory, representation
theory, and algebraic geometry. Gross will study Fourier coefficients for
modular forms on quaternionic real groups (with N. Wallach), the
exceptional theta correspondences in the style of Siegel (with W.T. Gan),
and various theories of modular forms modulo a prime. He will also
investigate subvarieties of Shimura varieties in the middle dimension and
motives with a fixed Galois group (with G. Savin). Kazhdan will work on
Langlands' lifting and the theory of unipotent crystals, perverse sheaves
on loop spaces, and the theory of algebraic integration. Sommers will
study representations arising from covers of nilpotent orbits and attempt
to resolve the normality question for the closure of nilpotent orbits in a
complex Lie algebra. He will also study connections with unitary
representations of complex Lie groups.

The proposal deals with several questions in the subfields of
mathematics known as number theory, representation theory, and algebraic
geometry. Many of these questions are motivated by the philosophy that
algebraic information can be obtained by geometric methods. At the center
of the work is the use of a symmetry group, or algebraic group, which is
an object that is both algebraic and geometric in nature. These symmetry
groups arise naturally in physics and chemistry. It is not too ambitious
to say that the solution to the problems in this proposal will one day
affect research in cryptography, theoretical physics, and quantum
computing.